Topics in Algebraic Geometry

An algebraic surface of type K3 is a 2-dimensional analog of an elliptic
curve. It is characterized by the property that its tangent bundle is not
trivial but the first Chern class is trivial. Its group of algebraic
automorphisms is a discrete group sometimes infinite sometimes finite and
its structure is closely related to the structure of the orthogonal group
of the the Picard group of divisor classes equipped with the intersection
product. The structure of the automorphism group of a complex K3 surface
is well understood thanks to the availability of trascendental methods
based on the study of the integration of a holomorphic 2-form on the surface
over transcendental cycles. No such methods are available in the case when
the characteristic of the ground field is positive. In the proposal the
principal investigator outlines several new approaches to the study of
automorphism groups of K3 surfaces over such fields. Some of them based
on the study of possible automorphisms of finite order which will allow
to compute the character of the group in its representation on l-adic
cohomology. Other approaches use the relationship between the Picard
lattice and the 24-dimensional Leech lattice. The principal investigator
will also study some applications to coding theory and cryptology related
to K3 surfaces over a finite field.

The study of symmetries of mathematical structures is one of the most
important and oldest problems in mathematics. A symmetry group of a
Riemann surface or an algebraic curve is now well understood. Much less
is known about symmetries of higher dimensional algebraic varieties. The
principal inverstigator proposes such study for a class of algebraic
surfaces known as K3 surfaces which are two-dimensional analogs of
elliptic curves. The symmetry groups of K3 surfaces are related to
symmetry of other objects, for example lattices in hyperbolic spaces
and convex polyhedra. Many known abstract infinite and finite groups
admit a beautiful realization as symmetry groups of K3 surfaces.
Applications of symmetry groups of elliptic curves over finite fields
to coding theory and cryptology is well known. It is expected that the
knowledge of symmetry groups of K3 surfaces over finite field will find
new applications to these theories.